The Role of Eddies in Climate

Two different two-layer models will be used to investigate the role of eddies in determining climate and climate sensitivity. One model will be a conventional quasi-geostrophic model, and the other will be the two-layer model proposed by Lorenz (1960b) which allows the eddies to interact with the static stability. The circulations will be forced by differential heating parameterized by Newtonian cooling. Dissipation will be in the form of Ekman suction at the lower boundary. Initially topography will be omitted, but it will be added at a later date. The models' horizontal resolution will not be constrained a priori, but previous studies indicate that the eddy fluxes can be simulated accurately with relatively low truncation. The study will differ from other climate studies with low-order models because of the inclusion of the eddy-mean flow interactions associated with the meridional eddy flux of momentum and with the vertical eddy flux of heat, and because of its focus on how the interactions are affected by diabaticity and dissipation. The results of the study should yield information of fundamental importance for understanding climate and climate sensitivity, and information of value for parameterizing the effects of eddies in simpler climate models.